WIYN CCD Mosaic Imaging Camera

A charge-coupled-device (CCD) mosaic will be constructed for use on the new WIYN telescope. This array of four custom 2048x2048 pixel CCDs will be the primary imaging detector for the WIYN Observatory. The construction of the detector/controller/software system will be shared between the National Optical Astronomy Observatories (NOAO) and Indiana University. The mosaic will cover an area 9.6 arc minutes on a side with only 2.8 arc seconds separating the four CCDs. A versatile filter/shutter assembly will be constructed equipped with three interchangeable filter wheels. The controller will have a wide range of operating modes which, coupled with a broad filter complement, will accommodate a large variety of scientific programs. Special hardware and software will be used to enhance the capabilities of the system for time-resolved stellar photometry.